Mathematical Sciences: Characteristic Cycles of Schubert Varieties and Other Singular Spaces

9404366 Fu The scope of research is concerned with the methods of characteristic cycles to analyse the geometric structures of classes of singular spaces. The techniques arise from complex geometry and representation theory. Another component of the research involves curvature measures of singular metrics in Riemannian geometry. The research has potential applications to other branches of mathematics including algebraic geometry, number theory and may have applications to mathematical physics. ***